Establishment of an Undergraduate Speech Science Laboratory

This project will give undergraduate students in the field of communicative disorders an opportunity for hands-on experience with the most modern scientific equipment used in the investigation of normal and disordered speech production The acquisition of the following equipment allows the project to achieve this goal: the MacSpeech Lab II allows analysis of the complex acoustic information in speech, clarifying the speech production and perception theories presented in lectures. Linearized magnetometers provide the students with information concerning the coordinated movements of the respiratory system. A pneumotachograph setup allows measurements of airflow patterns within the vocal tract, and when combined with input from an electroglottograph, yields valuable information about the activity of the vocal folds during voicing. Laboratory courses accompanying each of the undergraduate speech science lecture sections will employ the new equipment both in demonstrations and in student experiments. By bringing students into a scientific environment where they become active participants, this project opens the door to a greater appreciation for the role of science in the service of individuals with communicative disorders.